Continued Support for the Committee on Human Factors

The Committee on Human Factors is constituted as part of the National Research Council of the National Academy of Sciences. The mission is to develop new perspectives on theoretical and methodological issues and to provide guidance on research needed to expand the scientific basis and application of human factors to the programs of government agencies and other interested organizations. This funding is the NSF contribution toward this effort which is also funded by several other agencies. Under the present funding the Committee on Human Factors will develop several reports including one on the topic of national needs in the area of virtual environment science and technology.